Development System for Logic Programming

The challenge in logic programming is to offer a system that provides the opportunity to ensure correctness of programs (by executing formal logic specifications) without sacrificing efficiency (by allowing specification of control). Their project is to design and implement an environment for the development and execution of logic programs, maintaining and utilizing control information specified separately from the logic of the programs. The benefits of maintaining separate logic and control information include readability of the programs, the ability to make best use of the underlying hardware by changing the control specification without affecting the partial correctness of the programs, and portability of the logic specifications. The proposed system is unique in that most logic programming languages/systems sacrifice the correctness of the declarative logic semantics in favor of the efficiency gained by embedding the control information in the logic program itself.